Mathematical Sciences: Equivalence of Control Structures

This project will consider invariants and normal forms of control systems under feedback, observability transformations, and dynamic feedback. These topics will be investigated using the method of equivalence, exterior differential systems, and the theory of infinite pseudogroups. Major improvements of the exact linearization of Brunovsky's normal form are expected. This project has immediate applications to nonlinear autopilot design as well as other industrial processes; increase in computational speed will hopefully overcome flight problems of aircraft like the Harrier.